Cosmic Rays and the Interplanetary Magnetic Field

A broad-based program of theoretical and observational research on cosmic rays and their interaction with the magnetic fields of the sun and the solar wind is proposed. Included will be the continued operation of the Thule and Newark neutron monitoring stations through 1993, including development of new electronic units for the detectors. Specific tasks will include: (1) detailed analysis of solar particle events occurring during the present solar cycle, with special emphasis placed on understanding the remarkable fine structure observed in 1989. (2) sunspot cycle (11 year) and magnetic cycle (22 year) variations of the cosmic ray diurnal radial gradient. (3) sunspot cycle and solar magnetic cycle variation of the cosmic ray north-south anisotropy and radial gradient. (4) long-term variations and north-south asymmetries of the sun and solar wind. (5) the three-dimensional structure of interplanetary magnetic turbulence, as revealed in cosmic ray measurements. (6) magnetic helicity effects in cosmic ray transport. (7) particle scattering near 90 degrees pitch angle during dissipative, dynamic turbulence. ***